Student Travel Support for the 2018 ACM SIGMETRICS International Conference on Measurement and Modeling of Computer Systems (SIGMETRICS 2018)

The 2018 Association for Computing Machinery (ACM) Special Interest Group on Measurement and Evaluation (SIGMETRICS) conference will be held at Beckman Center, Irvine, California on June 18-22, 2018. SIGMETRICS brings together professionals from academic and industrial backgrounds in what has become a premier forum for discussing the development and application of state-of-the-art, broadly applicable analytic, simulation, and measurement-based performance evaluation techniques. The SIGMETRICS conference presents innovative, exciting work related to all aspects of performance for all types of computer systems. Highly original ideas, new approaches, and/or ground breaking results are expected.

Travel support will make possible the participation of students who would otherwise be unable to attend. Particular attention is paid to directing support towards under-represented groups, e.g., gender or ethnic minorities and students from smaller or less well-known institutions. The support will provide students who attend with the opportunity to interact with a diverse group of mentors and peers, furthering their education.